Support for the 41st International Symposium on Microarchitecture

This proposal seeks travel support funding for the 41st International Symposium on Microarchitecture (MICRO-41), a top-tier conference on microprocessor related research.
The requested funds will be solely used to provide travel support for graduates students to defray the costs of attending and participating in MICRO-41. The priority will be given to those students who will present their research at MICRO-41 or its joint workshops.